Physics Research Experiences for Undergraduates at the Pennsylvania State University

9322172 Annett A Research Experiences for Undergraduates (REU) site will be continued in the physics department of The Pennsylvania State University at the University Park campus during 1994-1997. The REU site will involve approximately 16 students in research projects each summer. Students will be involved in projects covering a wide range of frontier research. As an REU site, the Penn State physics department will mount an aggressive campaign to recruit students into the program, with a wide recruitment area covering Pennsylvania and surrounding, mid- Atlantic region states. Active efforts to encourage minority student enrollment will include personal visits to targeted HBCU physics departments at Morehouse, Clark-Atlanta and Cheyney, and will make use of the Committee on Institutional Cooperation (CIC) of the Big 10 schools. In addition to their own research projects, students will attend special weekly seminars designed to broaden their knowledge of physics and encourage interaction with faculty. Throughout the program, emphasis will be placed on encouraging the students' interest in careers in physics. ***